Behavioral Diversity and Ontogeny

The chemical senses are little understood in mammals and especially in humans, yet they are increasingly implicated in feeding, social, emotional, and sexual behavior, and even in disorders of these systems. Yet it is hard to disentangle the genetic, developmental, and experiential factors underlying the role of the chemical senses in these behaviors. Of all the amniote vertebrates, snakes rely on the chemical senses the most in all phases of their behavior. Because snakes are independent at birth, the three kinds of factors can be readily studied. In this research project, Dr. Burghardt will investigate the role of genetics and dietary experience in the sensitivity of responses to food cues and food preferences, using litters of garter snakes and their mothers. Young snakes will be tested with food odors of various concentrations as newborns and after being raised on a given diet. Their ability to handle and ingest the food represented by the odors will also be documented before and after the dietary experience. Questions this research should answer include whether or not the sensitivity to normal prey odors is heritable, whether or not the ability to improve performance with feeding experience is heritable, whether or not there is a relationship between perceptual and motor abilities in feeding, and whether or not the variability among litters is greater than that within litters. Answers to these questions in animals from the same wild population should set lower limits to the expected range of variation in animals with behavioral repertoires that are more complex but less dependent on the chemical senses.